Space-Tech for Non-Science Majors: A Weather Satellite Station

The Department of Physical Sciences is acquiring a computerized meteorological ground station consisting of a GOES equipment package with NOAA and super NOAA upgrades that receives RF (radio frequency) satellite signals from GOES satellites and supporting computers. The weather satellite station serves as a particularly strong tool for clarifying scientific concepts to non-science students by making it possible for them to conduct experiments that are directly related to their everyday activities. For example, students are predicting local weather and comparing their predictions to those of the weather service and the actual weather conditions.